Acquisition of a High-field Fourier Transform NMR Spectro- meter to Enhance Undergraduate Education in Chemical Spectroscopy

A 250 MHz Fourier transform nuclear magnetic resonance spectrometer is replacing a 14-year-old 60 MHz NMR spectrometer. The new instrument's ease of routine use, much higher sensitivity, and greater spectral dispersion is enhancing use of NMR in organic, inorganic, and advanced chemistry courses. In addition the laboratory experiences of intermediate and advanced chemistry students, both chemistry majors and others, is being enriched by important new NMR capabilities. Carbon NMR is taking its place alongside proton NMR as a key ingredient of the organic chemistry laboratory. Students in instrumental analysis and advanced laboratory courses are exploring molecular structure using two-dimensional NMR analysis, obtaining meaningful kinetic data more easily, and better understanding fundamental principles upon which NMR experiments rest. The new instrument is enhancing research training of senior undergraduates by greatly extending the range of accessible projects for student independent study. The department's curriculum is being enlivened by the addition of these new capabilities, and its students are being better prepared for postgraduate study or employment in the sciences. The grantee is matching the award from non-Federal sources.